Black-White Group Interaction: A Study of Control and Comfort

The objective of the proposed pilot project is to gain greater insight into the relationship between various racial compositions and their psychological effects upon whites and blacks. Such a study of the psychological factors thought to contribute to interracial tensions that result in the withdrawal of whites from integrated settings would have its greatest implications for issues bearing on school integration. The investigator feels that results from this study could be used as a guide in composing a variety of integrated work and therapeutic groups. By varying the racial composition of a series of small groups, the investigator will attempt to determine the following: 1) What effect does the racial composition of a group have on the perceived levels of control and comfort for blacks and whites? 2) Do whites and blacks experience the effects of varying racial compositions at different or similar racial configurations? The investigator plans to use the results in the pilot study to strengthen the quality of an anticipated full MRI proposal.